International Conference on Modern Algebra and Its Applications; May 14-18, 1996; Nashville, Tennnessee

DMS 95-31795 Ralph McKenzie and Constantine Tsinakis, Vanderbilt University The conference "Modern Algebra and its Applications" will take place May 14-18, 1996, at Vanderbilt University. This conference will highlight significant recent developments in modern algebra and its interactions with logic, combinatorics and computer science. The aims of the conference are to bring together researchers working in a broad range of contemporary algebra and its applications.